THE WAY THINGS WORK

Children's Television Workshop is embaring on a ground- breaking experiment in informal science education: the production of an entertaining animated series of 13 half- hour programs for Saturday morning commercial television, based on David Macaulay's bestselling book, The Way Things Work. The audience will be six- to eleven-year olds, with special focus on minority and economically disadvantaged children. The series' primary goal will be to entertain children with lively and appealing characters in a dramatic storyline, while stimulating children's interest in the scientific principles behind the workings of familiar machines and illustrating the action of their parts. NSF support will enable CTW to adapt the CTW Model -- the collaborative process used in earlier NSF-supported programs, 3-2-1 Contact and Square One Tv -- to the opportunities of the animation format and the realities of the partnership with a commercial network. Through a development agreement with CBS, CTW has begun the process of developing the series concept, characters, and storylines. Upon successful completion of this phase, production will follow with an anticipated broadcast premiere in fall 1992. NSF's $2.36 million support will allow this project to be possible by completing the series' funding; it will allow CTW to conduct significant formative research and summative analyses of educational impact, and to reach large minority and economically disadvantaged audiences through wider promotion and the creation and distribution of complementary print materials.